MGR Honorable Mention: Walter F. Bartolomei

This special award will give Ph.D. student Walter F. Bartolomei additional flexibility in pursuing his graduate studies and research initiation in cultural anthropology. This award will strengthen minority participation in research in this area.